Mathematical Sciences: Free Boundary Problems, Fully Nonlinear Equations, Nonlinear Parabolic Equations, and the Navier-Stokes Equation

The range of questions to be dealt with in this research covers broad fundamental investigations into the nature of solutions of partial differential equations. The equations arise from physical as well as geometrical sources and, for the most part, are nonlinear. One class of equations to be treated are known as fully nonlinear equations. They describe basic phenomena of geometry, elasticity and physics. Typical of these is the Monge-Ampere equation which effectively describes the curvature of a domain. The more interesting, and difficult question is that of deciding whether a given function can be the curvature of a domain. Work is planned on characterizing interior smoothing properties and related stability properties of solutions. Another line of investigation will continue work on free boundary problems which represent physical quantities whose properties change discontinuously at some level of the unknown, such as in multi-phase systems. Here the boundary between phases is a dynamic part of the problem and must be found along with solutions of the attendant differential equations. Work here will concentrate on geometric properties of the interphase and efforts will continue in seeking a unified theory coupled with minimal surface regularity theory. A singular perturbation approach will be employed. Bridging the two main themes of this project will be a study of generalized surfaces for which an elementary symmetric function of the curvature is prescribed. Results of this nature provide insight into various envelopes associated with arbitrary sets such as the convex or minimal area hulls. By-products of this work are expected to have extensive applications to the physical and mathematical sciences.